SBIR Phase I: Highly Efficient Exhaust Cleanup Technology for Environmentally Benign Processing

This Small Business Innovation Research (SBIR) Phase I project will develop a
novel integrated reactive abatement module (IRAM) that effectively removes solidifying
chemicals from the exhaust effluent of deposition and etch manufacturing processes. Growing
safety concerns and escalating costs dedicated to environmental protection is one of the drivers to
continuously migrate semiconductor manufacturing outside of the US. In this project,
hazardous chemicals will be reactively converted into inert solid films over a removable high-area filtration element. An integrated high-speed downstream pressure control will actively
suppress IRAM-induced pressure fluctuations that may affect the process. The reactive process
will apply highly effective chemical reactions to convert the solidifying chemicals into stable
inert films. Objectives include superior maintainability of low-pressure exhaust manifolds and
pumps and substantially improved safety of device processing systems, hence promoting safe and
environmentally benign semiconductor manufacturing at a competitive cost.

Broader impact: Chemical Vapor Deposition (CVD), Atomic Layer Deposition (ALD) and
Reactive Ion Etching (RIE) are considered the cornerstones of semiconductor manufacturing
technology. In the last decade these manufacturing-technologies have also migrated into the
explosively growing area of nano-technology. These process techniques emit reactive, toxic and
solidifying chemicals and produce a hazardous and destructive residue in low-pressure exhaust
manifolds that clogs up the conduits and destroys the vacuum pumps. Slow and inefficient
chemical reactions, driven by the typically low pressure and low temperature conditions in
exhaust manifolds, convert the reactive exhaust mixture into hazardous residue instead of
completely reacted inert films. Frequent maintenance requires ambient exposure of these
hazardous-residue-containing exhaust manifolds with risks to the workers and the workplace.
Growing safety concerns and escalating cost dedicated to environmental protection severely
hampers the semiconductor industry and reduces its competitiveness in the US. Overcoming this
deficiency, IRAM technology will apply environmentally benign chemistry with a localized
production of short-lived highly reactive species capable to completely extracting the solidifying
chemicals out of exhaust streams to produce inert solid films. This novel chemistry has a broad
range of device processing applications and can positively impact manufacturing costs.
Key Words: CVD, RIE, ALD, abatement, semiconductor manufacturing, LPCVD, foreline,
EH&S, environmental health and safety.
E.B.A 5/24/04